Instrumentation for Binary Star Speckle Interferometry and Photometry

The world's most productive speckle interferometer will be upgraded using an improved computer system and a new imaging detector, which will replace an existing but deteriorating intensified Charge-Coupled Device detector. This speckle interferometer, operating from Kitt Peak's 4-meter Telescope and Perkin's 72-inch Telescope, has been used in a long-term program of astrometric measurements of binary stars. The speckle photometry program is a major new effort to accurately determine the colors and magnitudes of the individual components of binary systems having separations as small as 0.035 arcseconds.